Special Project: Travel Support for CRA-W FCRC Super-Mentoring Workshop, Atlanta, Georgia

EIA-9820471
Computing Research Association
Berman, Francine
Aspray, William

Special Project: Travel Support for the CRA-W FCRC ``Super-Mentoring" Workshop: Atlanta GA
This grant aims at sponsoring ``super-mentoring'' workshop for FCRC
'99 which expands the previous (primarily junior and academic)
mentoring workshop target audience to include women involved in
research careers at national laboratories and within the industrial
sector, as well as senior (post-tenure) women who may be beginning to
deal with impediments to further promotion. The requested support is
for travel grants for participants and speakers, and support for the
primary workshop social event. Past experience has shown that the
travel grants are critical for many women who could not have attended
otherwise. Based on the comments from women who have attended similar
workshops organized by the Computing Research Association in the
past, it is expected that this workshop will serve as a catalyst for
positive and important changes in participant's lives.